Geometry and Analysis on Groups

DMS-0204687
Andrzej Zuk

In this research project the PI proposes to study
different problems related to geometry, analysis and
probability on discrete groups. The groups the PI is
interested in are lattices in Lie groups, groups generated
by finite automata, random and hyperbolic groups in
the sense of Gromov, groups acting on buildings.
The PI found recently new examples of groups with
property (T) and the PI intends to continue the study
of groups with this property. In particular, the PI would
like to find other groups with property (T) and continue
the study of automata groups. During this study the PI
plans to investigate properties of these groups related
to amenability, torsion, growth and the following famous
conjectures: the Atiyah conjecture about L2 Betti numbers,
the Baum-Connes conjecture, and the Kaplansky-Kadison conjecture
about the idempotents. The PI proposes also to continue
the study of spectral properties of random walks operators
and more generally the Hecke operators for groups generated
by finite automata and buildings.

Property (T) is a quite abstract property of some groups,
but which found applications in constructions of computer and communication networks. The PI proposes to find new groups
with this property which would have applications to several
problems related to efficiency of certain algorithms. The
other project concerning automata groups combines the
problems from the abstract group theory and applications
in computer science. The PI plans to give several mini-courses
for graduate students based on this research.